Surface Photochemistry of Molecules Adsorbed on Supported Metal Catalysts

This project involves the study of photo-induced reactions of molecules adsorbed on supported metal catalyts. Photochemistry of adsorbates on supported metal catalysts will be monitored by infrared absorption spectroscopy, mass spectrometry and UV-Vis reflectance spectroscopy. Photodissociation of chlorinated hydrocarbons adsorbed on Ni/aluminum oxide surfaces will be the first candidates for study. The wavelength dependence of the photodissociation process will be investigated in order to elucidate the mechanism involved in the surface photochemistry and to demonstrate whether a significant red-shift in the photodissociation threshold of the adsorbed molecule exists, as is found for single crystal metal surfaces. The extension of photo-induced surface chemistry from single crystal metal surfaces to supported metal catalysts is an important step in determining the feasibility of utilizing transition metal photo-assisted catalysis in chemical synthesis and processing. Of particular interest is the possible development of decom- position catalysts for halogenated hydrocarbons and other hazardous wastes. The research planning grant will be used to assemble the necessary apparatus and perform preliminary experiments on the wavelength dependence of the photodissociation of methyl chloride adsorbed on Ni/alumina. %%% Research Planning Grants enable women who have not had prior independent Federal research support to develop a competitive research project. This project involves the photochemistry of molecules adsorbed on supported metal catalysts, an area of great significance in chemical synthesis and processing, and in hazardous waste control.